POWRE: Regulatory Reform and Consumer Safety -- Examining the Impact of User Fees on New Drug Safety

This project investigates the impact of recent regulatory reforms
in the Food and Drug Administration (FDA) on new drug safety
in the U.S. pharmaceutical market. Since the agency introduced
prescription drug user fees in 1993, the speed of FDA review for new
drugs has increased. Although new drugs are being approved faster,
there have also been several newly approved drugs that were withdrawn
from the market because of safety reasons. This suggests that there
may be a trade-off between the speed of FDA review and new
drug safety. This analysis will empirically investigate how
the length of an FDA-approved drug's review time and how important
changes in the regulatory or political environment such as the
introduction of user fees impact new drug safety. To examine this
relationship, this analysis will utilize data from the FDA's
Spontaneous Reporting System (SRS) which is a computerized database of
adverse drug reactions (ADR) reported to the FDA under its
post-marketing surveillance program called MedWatch. This data will be
used to construct measures of new drug safety for the 1990-1995
approvals. These measures will be used to explore patterns and sources
of variation in new drug safety over time.

The user fee program is one of the few reforms introduced in the last
twenty years to significantly increase the speed of the FDA review
process for new drugs. While the program has received a positive
evaluation from politicians and pharmaceutical firms, there has been
no subsequent analysis of the effects of this reform on consumer safety
outcomes. The goal of this analysis is to provide a more thorough
understanding of the effects of this reform on new drug safety.
Results from this analysis will help policy makers better understand
and evaluate the impact of the user fee program on the market for
pharmaceuticals. In addition, there has been little investigation in
the pharmaceutical regulatory literature of the impact of regulatory
change on consumer safety outcomes because of the difficulty in
observing and quantifying new drug safety. This study will utilize a
medical database to develop proxies for new drug safety that can be
used in the proposed study and in future economic analyses of
pharmaceutical regulation. Finally, political efforts to increase
agency accountability have led to many different reforms in different
agencies. However, the reasons why certain reforms succeed while other
reforms fail are often not well understood. One reason is that politicians
fail to understand how different reforms alter bureaucratic incentives
and the trade-offs facing regulators. The data and results from this
study will address these important issues and help provide a better
foundation for developing and evaluating future FDA reforms.

The investigator's recent transition from an economics department to a
Division of health policy and management within a school of public health
Marks an important change in her career path. The POWRE grant will greatly
facilitate this transition and improve her chances of succeeding in her new
environment. Second, this research represents the begining of a new approach
for examining the impact of regulatory change on pharmaceutical safety.
Given such data has not previously been utilized by economists, this project
is perhaps more exploratory in nature to determine the pros and cons of
(i)using this data to measure changes in pharmaceutical safety over time;
and (ii) using this data to examine how user fees have altered the trade-offs
facing FDA regulators.